Synthesis, Structure and Properties of Open Framework Sulfides Coupled with Real-Time Synchrotron X-ray Powder Diffraction Studies

9713375 Parise Strategies to produce novel crystalline microporous solids will be explored for a new class of open framework metal chalcogenide materials. The research will focus on 1) further development of unusual and traditional synthetic strategies for the production of open frameworks; 2) determination of the crystal structures; 3) implementation of the small environmental cell for real time srudies and other in situ devices to aid in understanding reactions under hydrothermal conditions, measuring thermal stability under vacuum and flowing gas, and structural changes accompanying ion exchange, gas loading and intercalation; 4) development of techniques for data collection and structure solution from microcrystals and powders at synchrotron sources; 5) characterization of th estability, optical and ion exchange properties, and correlation of these with structure. %%% Open structured metal-chalcogenides represent a relatively new class of materials with potential areas of application such as selective sorbents, ion-exchangers, ion-conductors and hosts for inclusion chemistry. ***